US-China Cooperative Research Programs: Cytosystematics of Cyprinid Fishes

This proposal on "Cytosystematics of Cyprinid Fishes" between Dr. John R. Gold Texas A&M University and Professor Li Yucheng of Wuhan University is jointly sponsored by NSF and the Chinese State Educational Commission (SEDC). The investigators propose to investigate interspecific variations in chromosomal NOR phenotypes among 10-14 species of cyprinid fishes from the western United States and mainland China. They will investigate interspecies homologies of NOR-bearing chromosomes by chromosome C-banding, restriction enzyme banding, and a newly developed method which produces what appear to be analogous to G- (or R-) type bands in higher vertebrates. The long-term goals of the project are to assess the cytosystematics and evolutionary history of cyprinid fishes and to evaluate the role that chromosomal alterations have played in that evolutionary history. The systematic objectives of the research are to test the hypotheses that the western North American cyprinids to be examined are (i) monophyletic, and (ii) derived phylogenetically from an Asian lineage in the cyprinid subfamily Leuciscinae. Data for each species examined will include the number, position(s), and chromosome type(s) of all NOR sites. C- and other banding phenotypes will provide critical tests of homology, of NOR chromosomes with identical phenotypes and also putatively identify chromosomal rearrangements involving NOR sites. The chromosomal data will be analyzed phylogenetically using outgroup comparison. Additional benefits will include the intellectual merger of two of the leading fish cytosystematic laboratories in the world, and the possibility of future collaboration on a variety of projects. The investigators will also attempt to promote an exchange of both alcohol-preserved specimens and frozen tissues from a variety of fish species.